2005 Gilbert Club meeting

2005 Gilbert Club meeting
Intellectual merit
The Gilbert Club has met every year in Berkeley after the Fall American
Geophysical Union since 1983. It has grown from the original 7 participants to, in 2004,
nearly 200, and has been a forum for new ideas, community initiatives, sustained
communication, and the building of collegiality. Geomorphology has expanded rapidly
in this 20-year period, and the Gilbert Club has contributed to that evolution. The
meeting consists typically of three speakers followed at the end of the day with pop-ups
of short reports by any attendee. Until now we have always been completely independent
of any organization, and covered costs of the one-day (and evening) meeting through a
fee. Our costs have grown and this proposal requests funds to reduce the fee we must
charge the attendees. Because so many of our participants are students, we feel this
support is particularly appropriate and needed.
The meeting is run entirely on volunteer efforts of Berkeley graduate students, but
costs for room and vehicle rentals, meals, and some travel must be covered by a charge to
the participant. Here we request $7200 in participant costs, such that we can charge $15
for day and evening participation and $10 just for the day.
Broader Impacts
Under-represented individuals have been invited in the past and are particularly
sought among the new and emerging group of geomorphologists. We actively seek
names and track progress in order to make speaker invitations when individuals are ready
to give a substantial presentation. Gilbert Club is openly advertised and anyone is
welcome to participate.